CDSE: Collaborative: Cyber Infrastructure to Enable Computer Vision Applications at the Edge Using Automated Contextual Analysis

Digital cameras are deployed as network edge devices, gathering visual data for such tasks as autonomous driving, traffic analysis, and wildlife observation. Analyzing the vast amount of visual data is a challenge. Existing computer vision methods require fast computers that are beyond the computational capabilities of many edge devices. This project aims to improve the efficiency of computer vision methods so that they can run on battery-powered edge devices. Based on the visual data and complementary metadata (e.g., geographical location, local time), the project first extracts contextual information (such as a city street is expected to be busy at rush hour). The contextual information can help assist determine whether analysis results are correct. For example, a wild animal is not expected on a city street. Moreover, contextual information can improve efficiency. Only certain pixels need to be analyzed (pixels on the road are useful for detecting cars, while pixels in the sky are not) and this can significantly reduce the amount of computation, thus enabling analysis on edge devices. This project constructs a cyberinfrastructure for three services: (1) understand contextual information to reduce the search space of analysis methods, (2) reduce computation by considering only necessary pixels, and (3) automate evaluation of analysis results based on the contextual information without human effort.

Understanding contextual information is achieved by using background segmentation, GPS-location-dependent logic, and image depth maps. Background analysis leverages semantic segmentation and analysis over time to identify the background pixels and then generate inference rules via a background-implies-foreground relationship. If a pixel is consistently marked by the same semantic label across a long period of time, this pixel is classified as a background pixel. The background information can infer certain types of foreground objects. For example, if the background is city streets, the foreground objects can be vehicles or pedestrians; if a bison is detected, this is likely a mistake. This project processes only the foreground pixels by adding masks to the neural network layers. Masking convolution can substantially reduce the amount of computation with no loss of accuracy and no additional training is needed. Meanwhile, hierarchical neural networks can skip sections of a model based on context. For example, pixels in the sky only need to be processed by the hierarchy nodes that classify airplanes. The project provides an online service that can accept input data and analysis programs for automatic evaluation of the programs, without human created labels. The evaluation is based on the correlations of background and foreground objects.